Bootstrap Statistics for Paleomagnetic Data

The power and utility of pleomagnetic analyses stem from the ability to quantify such parameters as the degree of rotation of a rock body, or the orientation of an anisotropy axis. However estimates for uncertainty in these paleomagnetic data have been difficult to measure due to possibly inappropriate assumptions about how the data and naturally distributed. In many geologically important situations the commonly used parametric distribution functions fail to adequately model the data, leading to unreliable uncertainty estimate. This project will use several resampling techniques that are relatively free of restrictive assumptions to attempt to better detail the best estimate for the true direction for paleomagnetic directional data sets in a variety of geological applications. Results are potentially applicable to error estimates in a wide range of geological applications in addition to paleomagnetically determined orientation data.